FAW: Research on Object Oriented Databases and Semantic Integrity Constraints

This Faculty Award for Women Scientists is for research on object oriented database systems. Features of these systems include: object identity; supporting complex objects; encapsulation; classes and types; and inheritance. There have been several attempts to combine object oriented with deductive approaches in order to derive a data model that retains the advantages of object orientedness while having a declarative language with formal semantics. This research develops a declarative language for the object oriented data model. It includes novel features such as meta-variables and named values. Meta variables allow a rule language to have method inheritance naturally, and also facilitates parametric inheritance. Named values bridge the concepts of value and object.